Organization of the 1993 Photonics in Switching Topical Meeting, Palm Springs, CA, March 1993

Topics covered by this conference include: Devices and phenomena for switching applications; Optically, electrically, or mechanically activated optical switches; Switching arrays; Optical interconnect for electronic and photonic systems; Integration of optical and electronic switching devices; Materials properties relevant to optical switching devices; Comparisons of optical and electronic switching; practical and/or theoretical limitations; Trends in performance of optical and electronic switching devices; Switching systems and network architectures utilizing optical switching technologies; Applications for optical switching devices as alternatives to electronic switching devices in today's switching systems and architectures; New system and network architectures that capitalize on the unique attributes of optical switching devices; Novel systems applications that may favor or require the use of optical switching technologies; Photonic switching.